DOCTORAL DISSERTATION RESEARCH: The Verb in Chisukwa: Aspect, Tense and Time

Bantu languages are of interest to linguists because of their extensive
verbal morphology and their complex tense/aspect systems. The goal of this
project is to produce a detailed description and analysis of the verb
system of Chisukwa, an endangered Bantu language spoken in Malawi.
Evidence from Bantu languages suggests that different societies
conceptualize, organize, and talk about events in different ways. This is
most clear when observing the interaction of tense/aspect markers with
different verb types. Through fieldwork in Malawi, the student will
identify the various verb types in Chisukwa, define the aspectual/temporal
properties of the verb types, differentiate tense/aspect markers, and
determine how these markers interact with different verb types. Project
work will involve up to eighteen months of study in Malawi, working with
native speaker consultants using both direct and contextualized
elicitation sessions to gather data in Chisukwa. Other methods
include the recording, transcribing and translating of oral narratives
such as stories, personal histories, and folktales, as well as the
recording of daily conversations. The data will be recorded both in
notebooks and in a computer database. Analysis will be ongoing throughout
the duration of the project both in the field and in close collaboration
with linguists at the Centre for Language Studies at the University of
Malawi in Zomba. The dissertation research will accomplish three goals:
(1) contribute to the theoretical understanding of the role of temporal
relations in the conceptual organization of human experience, (2) document
and preserve aspects of an endangered and undocumented Malawian language,
and (3) contribute a comprehensive analysis to the growing pool of
knowledge about Bantu tense/aspect systems. This project will benefit not
only the academic community of the United States, but also the academic
community in Malawi and the Sukwa community itself. Copies of all
materials produced will be deposited at the Centre for Language Studies in
Malawi and institutions within the Sukwa community. In addition, the
materials will be used as a basis for eventually producing a Chisukwa
grammar and other pedagogical materials for the community.